Calculus of Functors, Operads, and Manifolds

Arone is interested in the interplay between calculus of functors,
operads and geometric topology. He is investigating the Taylor
approximations to spaces of smooth embeddings, and he has found
formulas for these approximations in terms of spaces of trees and
spaces of graphs. He also intends to show (in a joint work with P.
Lambrechts and I. Volic) that the formality of the little cubes operad
implies quite strong rational splitting results for spaces of
embeddings of a manifold into a Euclidean space. These splitting
results generalize to general embedding spaces some major theorems of
knot theory (e.g., the collapse of the Vassiliev spectral sequence). In
longer term, Arone would like to extend this work to the study of
diffeomorphisms of manifolds. Roughly speaking, the first derivative of
the space of diffeomorphisms is given by Waldhausen's A-theory, or
alternatively by topological cyclic homology (TC), and Arone would like
to find the higher analogues of TC, corresponding to the higher
derivatives. The role played by the circle group in the definition of
TC should in higher degrees be played by a category of graphs a fixed
homotopy type, perhaps related to the outer space of graphs that has
been used to study the groups of automorphisms of a free group. In a
different vein, Arone is also interested in developing further the
general theory of calculus of functors. For instance, he is interested
in developing a theory of polynomial functors that would generalize
Goodwillie's theory of homogeneous functor. Arone's understanding of
the subject was given a boost by the work of M. Ching, which made clear
the relevance of operads to this question. Arone is also interested in
applying calculus of functors to mainstream homotopy theory. In a
recent work with K. Lesh, he discovered a new filtration of complex
K-theory and a rather surprising relationship between this filtration
and the calculus of functors. The paper ends with a series of
conjectures about the precise nature of this relationship, and he would
like to pursue these conjectures.

Arone believes that the proposal will shed new light on active areas of
current research in mathematics and will lead to important new
insights. The proposed research should cast an important part of
geometric topology in terms familiar to algebraic topologists, and
conversely bring the power of homotopy theory to geometric topology.
The proposed activity involves an exciting interplay of ideas from
algebraic topology, combinatorics, group cohomology and geometric
topology. The PI hopes that eventually it will impact the thinking of
mathematicians from fields other than topology. It should also generate
exciting new ways to introduce important topics in topology to
students. It is already beginning to generate a number of PhD theses in
mathematics.